Systems Engineering Laboratory

A modern control systems design laboratory is being implemented in the undergraduate engineering curriculum of the Department of Systems Science and Mathematics at Washington University. This Systems Engineering Laboratory enables the teaching of modern control systems design principles and practice through the use of advanced but inexpensive hardware with fast personal computers, as well as high speed visually oriented simulation. Students also develop their own new experiments for Senior Design Projects in this laboratory. The laboratory has five computer workstations, with hardware and software that support the following elements: (1) a robot control system, (2) a computer vision system, (3) a noise cancellation system, (4) a ball and beam non-linear control experiment, and (5) an artificial neural network experiment for shape recognition and system identification.